Proofs, Functions and Computations: A web-based course as a laboratory for enhanced teaching and learning in logic, mathematics and computer science

Interdisciplinary (99) This project is developing a full-scale integrative course constructed around the basic concepts of Proof, Function, and Computation. These three fundamental ideas lie at the core of logic, mathematics, and computer science, respectively. The expanded course builds on a prototype web-based offering, "Logic & Proofs," that features carefully scaffolded and highly interactive material, mini-tutors, and a sophisticated Proof Lab. The intellectual merit of the project includes the provision of automatically generated intelligent advice to students via a dynamic "Proof Tutor" that monitors the current progress of students working on proofs. The course also serves as a laboratory for controlled experiments investigating two broad issues: i) the efficacy of specific pedagogical approaches, e.g., the tutored teaching of strategies for proof construction, and ii) the transfer of the reflective use of logic from a formal context to the semiformal one of set theory and, then, to the informal context of computability theory. The project's potential for broader impacts lies in the applicability of this approach to other disciplines.